MGR Honorable Mention: Diane Melendez

This special award will give Ph.D. student, Diane Melendez, additional flexibility in pursuing her graduate studies and research initiation in anthropological research. This award will strengthen minority participation in research in this area.